Torsional-Flexural Behavior in Nonlinear Analysis and Designof Steel Structures

This project will investigate the nonlinear analysis methods using a concept of a concentrated plastic hinge to estimate the resistance to combined axial, biazial and torsional forces. The technique will be used to analyze and design three dimensional steel structures by integrating computer-aided methodlogies.